Enhancing Chemical Reactivity with Perfluorinated Oxyanions

The perfluorinated oxyanion ligands oxopentafluorotellurate(VI) and perfluorotertiarybutoxide will be used to prepare new classes of very reactive compounds of transition metal and lanthanide ions. These compounds are expected to have the highest reactivity (Lewis acidity) possible in a given solvent, due to solvent molecules in the coordination sphere of the metal ion. Efforts will focus on solvents which are extremely weak donors, such as arene hydrocarbons and chlorocarbons, so that compounds containing coordinated solvent molecules as extremely easily replaced ligands will be formed. Extremely bulky anions which have the potential for being the least coordinating anion, such as tetrakis(oxopentafluorotellurate(VI))borate, will be synthesized, and their reactions with solvated metal ions will be studied in the weakly coordinating solvents mentioned above. The enhanced chemical reactivity of metal ion complexes of these weakly coordinating solvents and ligands will be applied to selective oxidation of organic substrates, the generation of unusual high oxidation states of metal ions, such as Cu(III) and Fe(IV), and the study of naked metal and non-metal cations in solution. The results of this project may provide a new method of controlling the reactivity of metal ions in solutions.